United States of America Mathematical Olympiad Program

This award provides particpant support for the Mathematical Olympiad Summer Program, which brings together 60 highly talented students for an intensive three-week program of training and instruction. This award also supports two new initiatives in the summer program: a research component in the instruction, and a program for women students that will allow eight young women to represent the United States in a prestigious international mathematics competition.

The United States has sent a team to the International Mathematics Olympiad each year since 1974. A founding objective for this global competition is to establish a foundation for future scientific collaboration between promosing students who will form the new generation of researchers in mathematics. The International Mathematics Olympiad is widely regarded as a pinnacle achievement for young mathematicians.